2005 Atmospheric Chemistry Gordon Research Conference; Big Sky, Montana; September 4-9, 2005

This award supports the Gordon Research Conference on Atmospheric Chemistry in Big Sky, Montana, September 4-9, 2005. This Gordon Research Conference is one of the major meetings in this field. In 2005, the conference will cover a broad range of areas in the atmospheric chemistry of clean and polluted environments: including tropospheric chemistry - laboratory, field and theoretical studies, upper troposphere/lower stratosphere - composition, chemistry and transport, and remote sensing. The meeting will be limited to 150 persons in order to promote vigorous and focused exchange. The registrants will be made up of a mixture of established U.S. and international researchers and young scientists, among them the participants of the preceding Atmospheric Chemistry Colloquium for Emerging Senior Scientists (ACCESS). The broader impacts of this Conference include invaluable opportunities for interactions between scientists at all levels in all major topical areas of interest in atmospheric chemistry.